SSC: DAPCEP University of Detroit Paper Vehicle Project

SSC-9350563 Detroit Area Pre-College Engineering (DAPCEP) Detroit, Michigan Hill, Kenneth, Arthur Haman, and Mark Thomas The Detroit Area Pre-College Engineering Program (DAPCEP) and the University of Detroit Mercy conduct a five-week commuter summer camp for fifty seventh- through ninth-grade African-American and Hispanic students annually. The camp focuses on the design and building of a full-size vehicle made of paper products. The curriculum is based on the Paper Vehicle Project written by engineers at General Motors. Students learn engineering concepts and take field trips to an automobile assembly plant and proving ground. The project includes mentoring by professionals in industry and area high schools as well as parental involvement.